STUDENT PIPELINE - Computer Science, Mathematics, Engineering and Technology Scholarship Program

The Student Pipeline-Computer Science, Mathematics, Engineering and Technology (SP-CSMET) Scholarship Program is a student focused, experience-based program. The SP-CSMET is used to identify incoming freshmen and sophomores that are interested in computer science, engineering, mathematics, and technology. High school administrators, the university admissions office, the financial aid office and faculty members help identify these students. The SP-CSMET provides enrichment experiences in engineering, mathematics, and technology by utilizing existing programs and by providing lecture series, workshops, and faculty mentoring for the students. The SP-CSMET supports 32 new freshmen the first year.

The second year of funding supports all freshmen that meet the criteria for their sophomore semester. The scholarship slots that are open the second year will be used to support new incoming freshmen students. This process will be repeated the third and fourth year of funding. The new SP-CSMET Scholarship Program is a feeder (Student Pipeline) to a recent NSF-funded Computer Science, Mathematics, Engineering and Technology (CSMET) Scholarship Program, serving juniors and seniors.